Acoustic Doppler Current Profiler Observations Along the WOCE Hydrographic Program Sections, P16 and P19

This proposal is to take measurements of the upper ocean velocity field using an acoustic doppler current profiler (ADCP) mounted in the hull of the research vessel. The work will be done as a contribution to the World Ocean Circulation Experiment (WOCE) on the hydrographic cruises in the southeastern Pacific.